Cedar Analysis of Coupled Mid-Latitude Upper Atmospheric Regions During Geomagnetic Storms

The CEDAR ( Coupling, Energetics and Dynamics of Atmospheric Regions) program has as part of its main goal the understanding of the coupling between atmospheric regions on a global scale. This project is directed towards improving our understanding of the processes coupling the mid-latitude upper atmospheric regions during magnetic storms. This will be done by analysis of radar, optical and magnetic data collected at Millstone Hill Observatory and by theoretical modeling. Specific issues to be addressed are equatorward surges in the neutral winds during storms, the relative importance of the different energy sources and coupling processes , such as temperature and compositional changes, and electric field changes related to the dynamo set up by the enhanced equatorward winds.***